SBIR Phase I: High Accuracy Trace Gas Sensor for Remote Sites

This Phase I Small Business Innovation Research Phase I aims to develop a near-infrared, laser-based spectroscopy instrument for detecting carbon monoxide, carbon dioxide, and methane in the Arctic as indicators of pollution transport. This instrument will be the first low-cost, remotely operated,
high-sensitivity, high-accuracy sensor capable of continuously obtaining, storing, and transmitting data without the need for on-site calibration. It will achieve a significant advance in the accuracy of CO measurements, thereby enhancing studies of pollution transport into the Arctic by allowing multi-year studies and comparisons between distant field sites. It will enable the atmospheric chemistry and Arctic climate scientific communities to generate accurate and reliable models of global pollution generation,
chemistry, and transport.
This instrument can be used as a medical diagnostic for pulmonary distress detection. It will also enable power plants and other industrial operations to improve the efficiency of their stacks, thereby decreasing emissions and increasing productivity.